SBIR Phase II: Point-of-Care Patient Photography Integrated with Medical Imaging

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) Phase II project is the widespread adoption of an efficient and accessible technology to integrate patient photographs with radiology images to improve patient safety, increase healthcare efficiency, and reconnect radiologists with their patients. A successful commercialization outcome is this adoption leading to direct cost-savings in healthcare by improving patient safety and hospital quality; even a 10% improvement in radiologists' efficiency leads to healthcare savings of ~$900 million. The broader impact of this novel technology is that it can provide patient authentication for the digital data being generated by hundreds of new digital medical devices. Any of this digital data could end up in the wrong patient's medical record and authentication is crucial. Rapid advances in smart, telehealth systems present the danger that patients can turn into mere data, but these photographs can return the interpreting physician's focus to the patient, leading to improved outcomes through patient-centered care. The technology achieves this by allowing doctors to connect with the patient as a person before diving deep and exploring data at anatomic, physiologic and molecular levels.

This Small Business Innovation Research Phase II project will seamlessly and securely integrate a radiology patient identification system to improve patient safety, by avoiding preventable errors, and enhance throughput. This transformative approach overcomes the failure of existing patient identification methods while harnessing the power of an embedded camera system to improve patient care. Technology to automatically and simultaneously obtain and embed audio and video data of the patient during X-ray and CT acquisition will be developed under this award. Specifically, the following objectives will be completed: 1) develop a mature software framework for rapid system scalability to a large number of hospitals, 2) expand the system to CT scanners and stationary X-ray machines, 3) improve image quality by adding infrared stereoscopic image capture, to ensure photographs add value even when obtained in low light settings, 4) enhancing the cameras with video and audio capabilities, which will improve patient identification, while simultaneously gathering rich clinical information, and 5) refine the triggering method for photograph acquisition. The long-term objectives are to increase the detection rate of wrong-patient errors by embedding an intrinsic, externally visible biometric identifier with medical imaging studies; and increase interpreting physician throughput by decreasing interpretation time.